Robust Lagrangian Surface Propagation with Topological Control

DMS-0310446
John C. Hart, Michael T. Heath, Xiangmin Jiao, and John M. Sullivan

This collaborative project funded under DMS-0310642 and
DMS-0310354 is a CARGO full team award made under solicitation
http://www.nsf.gov/pubs/2002/nsf02155/nsf02155.htm.

Level sets represent a moving interface surface implicitly, which
naturally accommodates singularities and topology changes, but at the
expense of a wasteful volumetric Eulerian representation that provides no
control over the topology of the level set. Our project will develop new
methods for tracking interfaces using a more efficient Lagrangian surface
mesh. Through careful prediction of instabilities and topology changes,
we will address the numerical, geometric, and topological difficulties
that have plagued previous Lagrangian approaches to interface propagation.
The result will be faster and more compact simulations of the motion of
interface surfaces, as well as the ability to detect and control changes
in their topology.

Moving boundary or interface surfaces are an integral part of a wide
variety of physical phenomena, such as solidification, extrusion,
multiphase flow, and fluid-solid interaction. Numerical simulations of
such phenomena require reliable and efficient methods for propagating and
tracking such moving surfaces. The focus of our project is to develop
new methods that provide greater control over surface propagation while
also attaining greater computational efficiency than existing methods.
One specific application we will consider is the simulation of combustion
in solid propellant rocket motors, which is the primary focus of UIUC's
Center for Simulation of Advanced Rockets (CSAR). This work will result
in more efficient and more accurate virtual prototyping of rocket motor
designs, leading to safer and more efficient solid rocket boosters,
such as those powering the U.S. Space Shuttle.